Rapidly-convergent, high-performance PDE solvers for materials-science and engineering applications: theory, implementation and applications.

Bruno
DMS-1008631

The investigator develops and analyzes novel
high-performance, highly accurate numerical algorithms for
computing solutions of partial differential equations (PDE), with
application to a wide range of problems in materials science,
engineering and medicine. The PDE solvers apply to problems
involving: (i) Various physical observables (elastic and
electromagnetic fields, linear and nonlinear acoustic fields,
thermal fields, fluid-flow) within and around (ii) Complex
structures (photonic or electronic devices, singular geometries
with corners, edges or cracks, anatomic geometries, air, water or
land vehicles built from metals or modern composite materials),
and containing (iii) Fluids or solid materials -- including
composite elastic media, dielectrics, perfect and lossy
conductors, compressible and incompressible fluids, as well as
media leading to dispersion and frequency-dependent absorption.
The computational methodology underlying the proposed work is
based on a class of numerical solvers and surface-representation
and meshing methodologies developed in recent years under the
direction of the investigator. These are Fourier-based integral
and differential solvers that can produce solutions with
high-order accuracy, unconditional stability, and no numerical
dispersion, for realistic engineering geometries including
features such as full aircraft, complex anatomic configurations
for medical applications, complex photonic or electronic devices,
etc. In practice, these types of solvers have demonstrated up to
one-thousand times faster numerics, for a given accuracy, than
some of the most competitive solvers otherwise available: the new
methods can enable solution of previously intractable problems.

The project impacts upon a variety of areas of societal
interest, including medicine (diagnostic and therapeutic
ultrasound with application to, e.g., tumor detection, kidney
stone destruction, and targeted drug delivery), electrical
engineering (optics, electronics), military and civilian remote
sensing and communications (radar, sonar, stealth, antennas),
design of efficient air, water or land vehicles, etc. The new
algorithms, which in a number of challenging case studies have
demonstrated up to one-thousand times faster numerics than
previous approaches, enable solution of previously intractable
problems in areas such as those mentioned above. The project
also trains graduate and undergraduate students and postdoctoral
associates. Undergraduate students, for example, carry out
summer-long research projects in an integrative environment
involving graduate students and postdocs as well as the
investigator and some of the industrial and lab researchers who
propose specific engineering problems.